Research Infrastructure: Intelligent Information Spaces: A Testbed to Explore and Evaluate Intelligent Devices and Augmented Realities

EIA-9972884
Reed, Daniel A.
Campbell, Roy H.
Nahrstedt, Klara
University of Illinois

RI: Intelligent Information Spaces: A Testbed to Explore and Evaluate Intelligent Devices and Augmented Realities

The University of Illinois will explore an experimental information space infrastructure than can couple handhelds, wearables, responsive objects, video, multimedia, real and virtual prototyping, and VR. Research to support this environment will be undertaken in component composition, automatic configuration of devices, adaptation, power and resource management, seamless communication and mobile QoS, modality transduction across varied devices, and new information access metaphors. The PI's will address applications in education that will both integrate the activities of the information space as well as provide a mechanism to reach women students and encourage their participation in CISE research.